Spin Electronics: A new Spin for the Nitrides: Can Room Temperature Ferromagnetism be obtained in (Ga,Mn)N?

This proposal was received in response to the Spin Electronics for the 21st
Century Initiative, Program Solicitation NSF 02-036. The proposal focuses
on the development of a room temperature ferromagnetic compound
semiconductor material, Ga1-xMnxN, for spintronic devices based on the spin
property of electrons. Many advances have been made in developing the
materials and devices for III-V compound semiconductor materials doped with
manganese (Mn), with Ga1-xMnxAs showing the most promise. However, the low
Curie temperatures (Tc) for these materials require potential devices to be
operated at temperatures below 77K. There is a need to produce a new class
of materials that can operate at, or near, room temperature to facilitate
the ease of measurement and the eventual commercialization of this
technology. The III-Nitrides will be excellent for this application
because recent theoretical predictions show that Ga1-xMnxN could have Tc
higher than room temperature. The Ga1-xMnxN can also be integrated into
existing base of microelectronics or optoelectronics existing for GaN-based
devices.
In this work it is proposed to produce Ga1-xMnxN by Metalorganic Chemical
Vapor Deposition, the growth technique of choice for GaN based
devices. There are no published reports of the growth of Ga1-xMnxN by this
growth technique at this time. A systematic study of the growth of
Ga1-xMnxN will be completed. Detailed characterization of the physical
properties Ga1-xMnxN will be investigated using x-ray analysis, Hall
measurements, time resolved photoluminescence, and other techniques. A
novel Ga1-xMnxN/Ga1-xAlxN/Ga1-xInxN LED structure will be grown so that
spin injection can easily be investigated at room temperature.
The broader impact of this work is clear: Spintronic devices that can be
operated at or near room temperature will be required if quantum computing
based on compound semiconductor materials is going to have a commercial
viability in the future.